Science and Religion in the 1920s: Religious Pamphlets by Major American Scientists

This project focuses on nine pamphlets about religion and science, published between 1922 and 1931 by the American Institute of Sacred Literature, a correspondence arm of the University of Chicago Divinity School. Shailer Mathews, Dean of the Divinity School and an important Protestant theologian, supervised the series and wrote one of the pamphlets himself. Another leading Protestant theologian, Harry Emerson Fosdick, wrote two pamphlets. The other six were written by prominent American scientists and engineers: Robert A. Millikan, Edwin Grant Conklin, Kirtley Mather, Edwin Frost, Michael Pupin, and Samuel Christian Schmucker. Although the pamphlets were underwritten by John D. Rockefeller, Jr., and distributed very widely, they are virtually unknown to both historians of science and historians of religion. This project supports the preparation of a history of the pamphlets that analyzes their content and places them in the larger context of the history of religion and science in America.